Acquisition of a Bio-Imaging Analysis System

Funds are requested to acquire a phosphorimaging system to be shared by a group of scientists at the University of Texas, particularly a group of five senior investigators. The common research theme among these laboratories is structure-function relationships of regulatory sequences, genes, and their interacting or encoded proteins.